Collaborative Research: Global Distribution of Diurnal Cycles and Long Term Changes in Cloud Amounts from Surface Observations

This award provides funds to support a study to test how well the isotopic composition of specific lipids track changes in the isotopic composition of water and dissolved inorganic carbon in lakes. The project will use analyses that require new and unproven analytical methods for measuring carbon and hydrogen isotopes on the extremely small samples involved. If successful, the project will provide a valuable new proxy measurement of isotopic compositions for paleoclimatic reconstructions.